Collaborative Research: Heavy-Quark Reaction Cross Sections at RHIC: Studies of Quark-Gluon Plasma Signatures

We propose a program of calculations of heavy-quark hadron cross sections which are
of great importance in the identification of a quark gluon plasma (QGP) in heavy-ion colli-
sions. This program will involve the calculation of reaction cross sections of various hadrons
which have been proposed as QGP diagnostic probes, such as heavy quarkonia, hyper-
ons, and antihyperons. Most of these cross sections are not accessible experimentally at
present, and as such can only be estimated using theoretical models. The central compo-
nent of this proposal consists of calculations of these cross sections using the well-established
constituent-interchange model, assuming standard quark model forces and a scattering for-
malism developed previously by two of us (Barnes and Swanson). This approach is known to
give reasonable agreement with existing experimental low-energy scattering data for a wide
range of analogous hadron-hadron scattering processes. Additional research topics which
will be addressed are the generalization of the approach to multichannel and relativistic
regimes, the incorporation of qq pair production amplitudes, a comparison of microscopic
and effective Lagrangian descriptions, and the development of a T-matrix formalism that will
allow direct application to bound state problems. The cross sections obtained here should
be useful as estimates of the various hadronic contributions to the proposed experimental
signals for the quark-gluon plasma. These hadronic contributions must be understood and
incorporated in simulations of heavy-ion collisions before QGP formation can be established
through various signatures; for this reason a third component of our program is a close
collaboration with researchers involved in Monte-Carlo simulations of RHIC experiments,
so that the experimental implications of these hadronic contributions for RHIC can be as-
sesssed. This will be facilitated by the presence of a large RHIC experimental group from
PHENIX at ORNL and University of Tennessee.